SBIR Phase II: Composing Digital-Twins from Disparate Data Sources

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase II project relates to the creation of a digital twin, an interactive, 3-dimensional model of a real-world system, of complex industrial environments and assets. This digital twin provides infrastructure necessary for the application of virtual reality training and augmented reality live-guided procedures in industrial workplaces, at scale. By making the full-scale roll-out of these technologies possible, the technology seeks to impact human health and safety, operational efficiencies, and environmental risk reduction for process operations facilities, such as oil refineries and chemical plants. The long-term impacts of this technology may also enable automation and optimization, improving their efficiency, security, and safety. Such facilities are critical infrastructure and play a significant role in the national economy. The availability of this product may also enhance market opportunities for other businesses in the scanning, spatial computing, and training markets. The impact may be further broadened by adapting the process for digital twin production to new domains unrelated to the industrial market.

This Small Business Innovation Research (SBIR) Phase II project is advancing knowledge and understanding in both machine learning and spatial computing. This project focuses on a method for digitizing a complex, real-world system, in an efficient manner, sufficient to recreate the captured reality as an interactive digital twin. The primary technical hurdle is the combining of different data sources, that describe aspects of a particular real-world system, into a single, complete description. The initial physical systems being modelled are industrial process operations, but the core methods could apply to other types of systems, including natural systems, such as a rainforest. For industrial process operations, the goal is to encode the entire process operations facilities, at the component level, with sub-centimeter accuracy, at 10% of the current time and cost requirements. To achieve this, this project will combine physical scans with engineering documentation and relational probabilities. Once combined, the model will be used as the basis for a digital twin of the real-world system projected into spatial computed environments, such as virtual and augmented reality. These techniques replace a tedious and limited static scan and intensive human labor workflow with rapid scans, computer vision, and a combination of procedural and trained algorithms.